Project Crumansonata-Studies of Mafic Dike Swarms and Interplate Lineament Evolution, India, Award in U.S. and Indian Currencies

Description: This project supports research by Dr. Bhattacharji and scientists from Louisiana State University, Florida State University, University of Rhode Island, Kansas State University and Queens College in New York in collaboration with geologists from the Geological Survey of India (GSI), under the direction of D.P. Dhondial the Director General of GSI. The research will include field work in central India along a lineament belt, and will include geochemical and geochronological studies in laboratories at U.S. universities. The objectives are: determination of the tectonic evolution of the inta-plate lineament belt and the relationship to associated flood basalts; delineation of the evolutionary paths of the mafic and ultramafic dikes and dike swarms; determination of the chemical and isotopic nature of the parental magmas, study of the hot spot hypothesis for intra-plate magmatism; and development of a thermo-mechanical model for the evolution of the lineament belt. Scope: The topic of this research was developed through a joint field workshop held in India which identified the specific lineament as suitable for providing the needed data. The work was started in the field and some laboratory investigations were carried out. A program report was produced which showed interesting results and pointed to the importance of geochronologic and petrogenic studies of the areas visited. The research project has the full backing of the Government of India, and enables a large number of U.S. scientists to work with their Indian colleagues on field investigations in India. It allows the Indian scientists to visit the U.S. for participation in the laboratory testing of samples. The collaboration is particularly useful to the two sides.